COLLABORATIVE RESEARCH: Characterizing Continental Deformation in the Andean Foreland at Multiple Timescales Using GPS Geodesy and the Geologic Record

9614651 Smalley This project is designed to compare the rates of deformation over geologic time scales of 105-106 years with the rates of deformation over human time scales of 10o -101 years. The area selected for this study is western Argentina, where growth structures have been actively evolving for the last 5 my. Deformation is also active and will be monitored by GPS over the next 3 years. These data will also be compared to a decadal record of earthquake activity, and aseismic components. The results will also have implications for the episodicity of continental deformation, temporal clustering of continental deformation within a volume, and simultaneous movements of faults at different sampling intervals.